Knowledge and Inference in Probabilistic Environments II: Learning and Experience in Real-World Contexts

How does an experienced neurologist learn to determine the cause of a patient's chronic headaches, a venture capitalist learn to spot a good prospect, or a teacher learn to motivate students? In all these cases, successful judgment is part talent, part training, and part luck. But the development of judgmental abilities over time also requires learning from experience. Because we live in an inherently probabilistic world, we must try to extract information from incomplete and imperfect feedback. The research proposed here explores the processes by which learning takes place in probabilistic environments, and the strategies by which people try to accomplish that task. The goal of this research is to provide information useful for both understanding and improving these learning processes. The results of this work have important potential applications in practical decision contexts. A great many major decisions are made on the basis of intuitive judgment, particularly when the situation is ill-defined, unstable, or novel, or when time, information, and resources are limited. It would be especially useful to have a better understanding of the limitations and possibilities of human learning in such situations. A better understanding of human learning can also guide the development and use of statistical methods and other decision aids. Such understanding can help clarify the costs and benefits of reliance on human vs. mechanical judgment, aid in the design and implementation of interactive man-machine systems, and identify means by which human learning processes themselves can be improved and facilitated.